TechXcite

This project will develop a new 4-H Afterschool curriculum called Discovering Technology to be implemented in 7 states potentially reaching 5000 middle school youths and 250 4-H leaders annually. The program would encourage youth in both rural and urban settings to pursue careers in engineering and technology. The project is a partnership of the Pratt School of Engineering at Duke University, the National 4-H Council/4-H Afterschool, North Carolina 4-H and the National Science & Technology Education Partnership (NSTEP).